Semianalytic Treatments of Atomic Processes

This work will continue a program of theoretical studies of atomic collisions on the topics 1) extracting dynamical parameters from collision data 2) R-matrix calculations of dissociative attachment and 3) analysis of fragmentation processes.